Mathematical Sciences: Functional Analysis and the Robust Control of Distributed and Nonlinear Systems

This project is mathematical research that has applications to the design of control systems. A variety of methods from functional analysis and operator theory will be brought to bear on problems involving matrix-valued analytic functions, in particular optimal supremum norm approximation by such functions and multivariable Nevanlinna - Pick interpolation problems. Results here are relevant to the computation of quantities which enable one to stabilize systems with parameter or modeling uncertainty while at the same time meeting certain performance specifications. Nonlinear as well as linear systems will be considered, with due attention to development of the underlying operator theory in the nonlinear case.